Shipboard Scientific Support Equipment

This project will supply shipboard scientific equipment for the research vessels COLUMBUS ISELIN and CALANUS, operated by the University of Miami, Rosenstiel School of Marine and Atmospheric Science, and dedicated to use in support of ocean science research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. This Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, Ronald Hutchinson is fully qualified to direct this project having had considerable experience in overseeing the acquisition and installation of shipboard equipment. This project will allow the institution to acquire a video system to monitor deck activities on the ISELIN, improve winch metering on the trawl and hydro winches on the ISELIN, replace two outboard motors for the ISELIN and CALANUS and obtain a clean hood for the ISELIN.